REU: Chemical, Optical, Nonlinear, and Condensed Matter Physics

This grant will continue the support of a Research Experiences for Undergraduates Site in the School of Physics at the Georgia Institute of Technology. Approximately 12 students will be selected by national recruitment, and will be involved in a number of on-going research projects.